CAREER: Scalable Assurance via Verifiable Hardware-Software Contracts

Hardware-software (HW-SW) contracts are critical for high-assurance computer systems design and an enabler for software design/analysis tools that find and repair hardware-related bugs in programs. For example, memory consistency models (MCMs) define what values shared memory loads can return in a parallel program. Emerging security contracts define what program data is susceptible to leakage via hardware side-channels. Unfortunately, these contracts and the analyses they support are useless if we cannot guarantee microarchitectural compliance, which is a “grand challenge.” The project's key novelty is a bottom-up approach to the contract verification challenge that synthesizes HW-SW contracts, specifically MCMs and security contracts, from advanced (i.e., industry-scale/complexity) processor implementations. This project's core impacts are as follows. First, a significant fraction of modern design effort is devoted to verification. An automated methodology for synthesizing HW-SW contracts directly from implementations, even with modest designer input, would be a huge step forward. Second, hardware side-channel attacks are arguably the security threat in computer architecture. An approach for precisely computing how a microarchitecture can leak the data it processes through side-channels has direct applications to secure software design and hardware verification today (e.g., verification of Arm’s Data-Independent Timing extensions or Intel’s Operand Independent Timing specification) and HW-SW-security co-design tomorrow.

This work will explore three research thrusts to enable synthesizing HW-SW contracts from advanced processor designs. Thrust 1 will investigate what design information is required to support automated contract synthesis procedures and how to acquire it from the target microarchitecture with minimal designer input. Thrust 2 will study how to use the design information acquired in Thrust 1 to develop HW-SW contract synthesis procedures. Thrust 3 will use the contracts produced by Thrust 2 to support hardware verification and program analysis flows rooted in hardware reality. This work's bottom-up approach to verifying contract compliance by synthesizing HW-SW contracts from implementations offers efficiency and scalability advantages over traditional top-down techniques since abstract contracts can be incrementally constructed by evaluating a design’s adherence to simple low-level properties. Moreover, it is robust to HW-SW contracts that emerge post-deployment or evolve over time. HW-SW contracts that are synthesized from implementations enable advances in high-assurance software design and hardware verification. For example, this project will enable the design of software which is provably robust to hardware side-channel leakage as well as comprehensive MCM verification of advanced processor Register Transfer Level (RTL) for the first time. This cross-disciplinary research project cuts across three areas: computer architecture, formal methods, security. The team consists of one PI and a graduate student researcher at Stanford University, who will work with ARM and Intel as partners.